Pfair-Scheduled Real-Time Systems: Extending Theory to Practice

Proposal Number CCR-9972211

Pfair-Scheduled Real-Time Systems: Extending Theory to Practice

James H. Anderson

The scope of real-time computing is increasing to include "next generation"
applications implemented across multiple processors. Examples of such
applications include defense systems, avionics control systems, and
telepresence systems. To develop such systems, effective techniques for
realizing timing constraints in multiprocessor systems are required. A major
advance in the evolution of such techniques was recently achieved in the work
of Baruah and colleagues on Pfair scheduling. Under Pfair scheduling, tasks
are required to execute at steady rates. Executing tasks at steady rates has
important consequences. For instance, Pfair scheduling algorithms have been
developed that optimally schedule periodic tasks on a multiprocessor in
polynomial time. This is a problem that was previously viewed as being
almost undoubtedly NP-hard. Unfortunately, the current theory of Pfair
scheduling is of limited practical value because it includes support only for
strictly periodic tasks that have no synchronization or data-sharing
requirements. In this project, these shortcomings will be addressed by
developing a Pfair scheduling framework that includes support for
interprocess communication and synchronization, I/O, and fault tolerance.
This framework will be evaluated by implementing a Pfair-scheduled real-time
operating system, which will be used as a basis for experimental research
involving both synthetic and real-world applications.